CAREER: Synchronization, Monitoring, and Communication for Distributed Agents

Proposal number: CCR-9875617
PI's name: Kshemkalyani, Ajay D
Institution: University of Illinois at Chicago
Title: CAREER: Synchronization, Monitoring, and Communication for Distributed
Agents

Complex distributed applications can use event abstraction to provide
simplicity to the programmer and system designer by reducing the amount of
information to be handled. However, it is necessary to retain a fine degree of
control over the synchronization conditions in the computation. This research
investigates a framework to provide the necessary control on synchronization
and communication among the distributed agents by addressing the following.
First, various forms of synchronization between distributed agents whose
actions can be viewed at different levels of abstraction are defined.
Second, mechanisms to specify and enforce the desired forms of synchronization,
to detect the forms of synchronization that occur, and to monitor the
computation nonintrusively are designed. Third, algorithms for efficient
communication among the synchronizing agents are designed and evaluated.
The research is expected to impact the ease with which the increasingly
complex distributed applications can be synchronized, controlled, and
monitored while maintaining a fine degree of control over the synchronization
involved. This has the potential to simplify the design of the rapidly
increasing number of large distributed applications.